Joint tomography using three-dimensional sensitivity of finite-frequency body and surface waves: Methods and application to the Iceland hotspot

This project will capitalize on recent advancements in wave propagation theory by developing a suite of regional tomographic methods using the 3D sensitivities of finite-frequency body and surface waves across a regional seismic array. The new methods will be applied to Iceland and will integrate presently separate seismic data sets.